Medical College of Wisconsin Dial - in Internet Service

The Medical College of Wisconsin (MCW) seeks to provide access to and educational support of the INTERNET to hospitals and clinics throughout the state of Wisconsin, Northern Illinois and the upper peninsula of Michigan. At present, these non-academic, non- government agencies have only limited access to some of the functions Internet provides (i.e., e-mail) through the commercial sector. MCW is already an Internet node and seeks to enhance its outreach mission by providing access to the Internet's services in order to improve state and regional health professionals' access to information. The objectives of the proposal are: * provide access to the Internet for rural and community hospitals and clinics * educate users as to what the Internet is * instruct and support users on how best to utilize Internet's services * serve as a demonstration project for other regions